TC:Small: Formal Reasoning about Concurrent Programs for Multicore and Multiprocessor Machines

Formal reasoning about concurrent programs is usually done at a
high-level with strong assumptions such as built-in thread primitives
(e.g., locks) and simplified memory models (e.g., sequential
consistency). Existing formal techniques (including Hoare logic and
type system) have consistently ignored important issues such as
relaxed memory models, hardware interrupts, implementation of
synchronization primitives, and support for software transactional
memory and privatization. This severely limits their applicability.

This research focuses on extending and adapting existing formal
techniques so that they can also support realistic low-level
concurrent programs running on modern multicore and multiprocessor
machines. The PI is developing a new operational approach for
reasoning about programs running under relaxed memory models;
designing new program logics for certifying both weak and strong
memory operations (including the memory-fence and compare-and-swap
instructions); and showing how to scale his approach to real-world
thread implementation and to machines with relaxed memory models. If
successful, this research will help improve the reliability of
concurrent software components, which form the backbone of many
critical systems in the world. It will also facilitate the
community-wide effort for finding new programming models for safe and
scalable multicore computing.